Coupling Internal and External Mechanics of Swimming Organisms: A Computational Approach

Fauci
9805492
This project concerns the fluid dynamics of aquatic animal
locomotion, a field that encompasses the study of flagellar
motility as well as invertebrate swimming. The investigator and
her colleages explore the coupling of the internal
force-generating mechanisms of the organisms with an external
viscous, incompressible fluid. A unified computational approach
can be adapted to model the internal axoneme mechanics of a
beating cilium, the force-generating internal flagella of
spirochetes, as well as the coupling of active and passive tissue
properties to the swimming mechanics of a leech. In addition to
modeling the dynamics of a single organism, the collective
hydrodynamic interactions of groups of organisms and their
environment can be examined. The investigator has developed a
mathematical model designed to study the coupled mechanical
system comprised of the fluid and the immersed organism. The
numerical method used is the immersed boundary method. The full
incompressible Navier-Stokes equations are solved in a domain of
fluid within which neutrally-buoyant organisms undergoing
time-dependent movements are immersed. The salient feature of
this method is that the suspended organism is replaced by
suitable contributions to a force density term in the fluid
dynamics equations.
This interdisciplinary project employs modern methods in
scientific computing to study important biological processes. The
understanding of bacterial motility and aggregation is of vital
importance in bioremediation, the process by which bacteria are
used to degrade toxic chemicals. In addition, the study of the
internal mechanisms of cilia, flagella and spirochetes has
applications in medicine and biotechnology. The computational
algorithms developed in this project will be useful in studying
other biofluiddynamic problems as well as contributing to
expertise in high performance computing.